Temporal and Spartial Variations in Mid-Ocean Ridge Magmatism and Crustal Accretion Along the Juan De Fuca Ridge

9530299 Perfit The Juan de Fuca Ridge has been the site of an extensive study of volcanology and hydrothermal activity. The segment that appears to be most volcanically active (known as the Coaxial segment) has had two eruptions since 1981. The PI has been involved in the collection of basalts from this ridge for several years and wishes to analyze these rocks to investigate the compositions of the lavas and how they change with time. This work would be synthesized into a map that contained the data from the rocks, the hydrothermal vents, and photos.